Pre-College Science and Engineering Technology Project

New Mexico Highlands University will conduct a 4 week residential pre-college science & engineering technology project for 50 students in grades 10-12. Program activities will include a study of mathematical logic, introduction to Engineering and Engineering Technology, Computers, of Science, Technical Writing. Field trips will be made to laboratories and outstanding scientists will be guest lecturers. Parents will be involved in all phases of the program.